R/R: Program Coordination -- Repair and Rehabilitation Research

This project is supported Under NSF Announcement No. 90-23, "Repair and Rehabilitation Research for Seismic Resistance of Structures." Coordination is needed to: 1) develop a comprehensive technical document which can be used to develop design requirements and details acceptable for engineering practice 2) facilitate exchange of information between U.S. and foreign researchers and designers 3) provide a mechanism for rapid transfer of technology from research to practice This principal investigator will be responsible for coordinating program activities between all PI's funded to undertake research study of seismic repair and rehabilitation of structures during the first year of work.